Topics in Measurable Dynamics of Group Actions

The research proposed lies at the interface between measurable
and topological dynamics. In these and other areas of dynamics
the problems concerning the relationship between the dynamical
and cohomological properties of systems proved to be very
important. One circle of the proposed problems can be
informally called "inverse problems for coboundaries", and,
roughly speaking, is aimed to understand how and to what extent
the dynamics of a measurable group action can be recovered
from the cohomological information, and in particular, from the
collection of all measurable coboundaries. It turns out that,
in the case of group actions, the algebraic properties of the
acting group play an important role. Another line of the
proposed research is an attempt to get a complete understanding
of the possibility of constructing minimal topological models
for arbitrary families of measurable dynamical systems.
In the case when the family consists of one single ergodic
automorphism, the answer is given by the famous Jewett-Krieger
theorem.

The classical theory of dynamical systems originated with the
study of qualitative behavior of the solutions of differential
equations describing the motion of a mechanical system. The
fundamental theorem of Liouville provided the bridge between
the classical theory and modern measurable dynamics. The study
of the connections between the different and seemingly
unrelated properties of the measurable systems, as well as
relations between the measurable and continuous structures in
dynamics, strengthens our sense of connectedness of the entire
building of mathematics.